Mathematical Sciences Computing Research Environments

The Department of Statistics at the University of California at Berkeley will purchase 18 SUN Ultrasparc workstations which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for many research projects, including: Genetics (Terry Speed) testing for genetic locus heterogeneity, investigating the power effects of interference, estimating recombination fractions, modeling crossover interference, identification of quantitative trait loci, location of disease genes, and estimation of phylogenetic relationships between species. Wavelets (David Donoho) research includes basis pursuit, time frequency signal analysis, and digital communications processing, Biological and Environmental Problems (John Rice) analysis of ion channel recordings, analysis of oceanographic measurements, and modeling hormonal profiles ( David Brillinger) analyzing nerve cell spike trains, trajectories of mammalian dives, motion of meteorological fields, and seismic risk analysis. Astrophysics(Philip Stark) modeling the structure of the sun, algorithms for the analysis of satellite data. Methodology (Leo Breiman) study of the structure of neural nets, prediction of multiple time series, stabilizing nonparametric high dimensional predictors in regression and classification, using categorical variables in nearest neighbor classification, and parallelizing CART over a workstation network. Stochastic Processes (David Aldous) Monte Carlo experiments in spatial stochastic processes. (Ching-Shui Cheng) nonregular experimental designs